Survey of Undergraduate Mathematical and Computer Science Departments, 1990 - 1991

This effort represents the fifth in a series of NSF- supported quinquennial surveys of undergraduate programs in mathematics and computer science departments at the Nation's colleges and universities. This project provides much-needed and unique information on undergraduate courses, enrollments, faculty, teaching formats and organizational structure in mathematical and computer science departments in U.S. universities, 4-year colleges and two-year colleges. These data have not been collected by any other agency at any other time. This proposal also calls for the establishment of a comprehensive and more permanent data base of all undergraduate departments of mathematical and computer sciences in the United States. A relatively recent initiative for NSF, the lead agency for U.S. science and engineering education, is its undertaking of the development of a national data base on science and engineering undergraduate education. This survey, conducted by the Mathematical Association of America, is an important piece of that initiative, and can serve as a prototype study for NSF in its development of data for other science and engineering disciplines.